Collaborative Research: The role of a keystone pathogen in the geographic and local-scale ecology of eelgrass decline in the eastern Pacific

Pathogens may be unrecognized key species in many ecosystems, causing massive impacts on other species and habitats despite the microscopic size of disease-causing organisms. Yet the triggers to disease epidemics likely involve complex interactions among changing environmental conditions and associated biological communities. In the ocean, understanding disease outbreaks has been hindered by inadequate knowledge of how these various influences interact to determine susceptibility and resilience to disease. This project integrates research in community and disease ecology with microbial genomics, geospatial analysis, and state-of-the-art computational approaches toward an unprecedented understanding of the causes and consequences of wasting disease in eelgrass, an important vegetation type supporting coastal and estuarine ecosystems throughout the northern hemisphere. The research advances frontiers in understanding the growing but poorly appreciated threat of marine diseases, how disease ecology interacts with environmental change, and its consequences for the extensive ecosystems and coastal communities that depend on eelgrass, across 23 degrees of latitude along the Pacific coast of North America. The research will inform better management of threatened seagrass ecosystems, which provide important services including fisheries habitat, erosion control, carbon storage, and capture of nutrient runoff. The research will foster integrative approaches in the next generation, including high school students, undergraduates, graduate students, and postdocs working on the project, and each investigator's institution will work to recruit participants from under-represented groups. Best practices developed under this award, including the Eelisa disease app and drone mapping, will be disseminated for broader surveillance of seagrass disease and coastal habitat quality by both professional and citizen scientists in coordination with the Global Ocean Observing System's (GOOS) develpoment of seagrass extent as an Essential Ocean Variable.

The triggers to marine disease epidemics are likely complex, and progress in understanding them has been hindered by a poor understanding of the multifaceted ecological context of the host-disease interaction. This project's overarching goal is to disentangle the web of direct and indirect interactions by which changing climate mediates prevalence of eelgrass wasting disease, and its consequences for threatened but important eelgrass ecosystems. The centerpiece is a comparative, cross-scale survey of eelgrass community composition, microbiome, and disease prevalence along thermal gradients of latitude and exposure to the ocean, providing the first coast-wide picture of disease dynamics in response to environmental change. In situ sampling will be linked to dynamics of eelgrass at landscape scales using unmanned aerial systems (drones) to quantify high-resolution changes in eelgrass extent and habitat quality. Experiments will test how the diverse biological community mediates impacts of the pathogen on eelgrass ecosystems.